Mathematical Sciences: Problems in Several Complex Variables

9321878 Alexander This award supports mathematical research on problems arising in the theory of several complex variables. Four primary areas will be consider in this project. The first concerns polyharmonic interpolations continuous functions on C-1 curves in the boundary of the unit ball. The second area focuses on a unique continuation property and weak Hopf lemma for holomorphic mappings from the plane to higher dimensional spaces. Also, work will be done on an extremal problems about hulls and spheres in complex two-dimensional space. Finally, an investigation of the disc-hull and other properties of hulls which arise by a linking process will be taken up. Special emphasis will be placed on studying the ball of the Lagrangian disc of Duval.Several complex variables arose at the beginning of the century as a natural outgrowth of studies of functions of one complex variable. It became clear early on that the theory differed widely from it predecessor. The underlying geometry was far more difficult to grasp and the function theory had far more affinity with partial differential operators of first order. It thus grew as a hybrid subject combining deep characteristics of differential geometry and differential equations. Many of the fundamental structures were defined in the last three decades. Current studies still concentrate on understanding these basic mathematical forms. ***